RUI: Problems in Relativistic Nuclear Physics

9414736 Maxwell As part of a series of relativistic studies in nuclear physics, two major calculation projects will be undertaken: (1) the development of a phenomenological, relativistic, energy-dependent nucleon-nucleon t-matrix and (2) the continuation of relativistic studies of the (p,2p) reaction conducted in collaboration with Dr. E.D. Cooper. ***